Acquisition of a 500 MHz NMR spectrometer

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at The University of Montana will acquire a 500 MHz NMR Spectrometer. This equipment will enable researchers to carry out research on a) metabolic engineering and biosynthesis in Streptomyces; b) the use of fluorine-19 NMR to probe macromolecular interactions; c) the application of triosmium benzoheterocycle clusters as biomarkers; d) studies of the structure and function of retro-viral RNA; e) synthetic hydroxylated polyamides from unprotected carbohydrates; and f) medicinal chemistry.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in a number of areas, including medicinal and polymer chemistry.